A Workshop on Defining the Role of Ergonomics in Designing for Manufacturability; Cincinnati, Ohio; November 1993

9314666 Mital The ease, quicknes, and economy of product manufacture are now considered by many in industry and academia to form the basis of modern manufacturing. These criteria, when applied collectively on the design stages of a product, become known as Designing for Manufacturability (DFM). The current DFM philosophy tends to overemphasize automation, of both the hard and flexible kind. At least two major problem arise when designers attempt to implement this philosophy in practice: (1) hard automation does not lend itself to frequent changes in product design and (2) the cost of the automation option may be much greater rhan the cost of manual or hybrid option. Ergonomics, which deals primarily with the application of technology tol assist the human element in human work, has an important role to play in the product design process. This workshop explores the role of ergonomics in the overall DFM philosophy and how it can assist designers more usuable, safer, reliable, and economical products. ***